US-France Cooperative Research: Transport Properties and Dynamical Effects in Heterogeneous Disordered Matter

This award will support collaborative research in condensed matter theory between Dr. Catalin Mitescu, Pomona College and Dr. Etienne Guyon, Ecole Superieure de Physique et Chimie Industrielle, Paris, France. The topics of the joint study are dynamical properties and time-dependent effects in disordered systems. Over a decade of research has revealed that heterogeneous, weakly connected matter is frequently characterized by a large distribution of scales, describable in terms of the new, elegant concepts of fractal geometry. It has recently become clear that it is this fractal distribution which sharply controls the transport properties of multi-phase materials, often invalidating (for weakly connected matter) the classical, mean-field models for the behavior of composite materials; these models, in analogy to "meanfield" approximations, hold that most mechanical and transport properties are merely suitable averages over an appropriate representative volume. Drs. Mitescu and Guyon propose that a similar multiple-scale interpretation must apply to dynamical, time-dependent phenomena, which often involve a multiplicity of time, not spatial, scales. They also expect that the existence of fractal objects will lead to unusual high-frequency effects, already theoretically discussed, but as yet little investigated experimentally. Their study of transport phenomena will involve: (i) fundamental theory of the dynamics of fractal lattices, (ii) computer simulation of model systems, and (iii) experimental investigations on both real materials and synthesized models. Specifically, they intend to investigate (a) the permeability or dispersion in porous media, (b) elastic moduli and vibrational modes of heterogeneous solids, (c) nonlinearity effects in random media, and (d) the manner in which repeated stresses may lead to internal failure in materials, and affect their observed properties. Both the US and French researchers have made substantial contributions to dispersion studies in porous media; Professor Guyon and his colleagues are among the leading experts in the field of disordered materials, especially transport and dynamic properties.